RUI: New Concepts in Shape-Preserving Pulse Propagation with Multiple Lasers

9507837 Hioe Novel techniques in using shape preserving pulses are pursued in order to provide insight into atomic control. The theory exploits the nonlinear interaction of two laser pulses when they pass through an atomic medium. ***